Mathematical Sciences: Presidential Young Investigator Award

The principal investigator has received a Presidential Young Investigator award. This will allow him to vigorously develop his promising career focused on the study of partial differential equations.